Conference: 2023 NSF Campus Cyberinfrastructure PI Workshop

The 2023 Campus Cyberinfrastructure PI Workshop builds upon the success of the previous Campus Cyberinfrastructure Workshops providing an opportunity for recipients of all active NSF Campus Cyberinfrastructure (CC*) awards to meet in-person, exchange project findings, interact with national cyberinfrastructure resources and experts as well as collaborate across project areas and project regions. By again co-locating the CC* workshop with the Quilt Fall Member Meeting, the broader programmatic scope encourages relationships between campus cyberinfrastructure, science driven applications, and regional and national cyberinfrastructure resources. The meeting schedule provides additional opportunities for interaction between PIs as well as between the diverse groups participating in the meetings. Included in the 2023 CC* PI Workshop is a set of post-workshop tutorials focused on topics relevant to challenges facing CC* project teams.